Mathematical Sciences: Problems in Combinatorics

Rodl This award funds the research of Professor Vojtech Rodl in extremal graph theory and Ramsey Theory. Prof. Rodl will apply probabilistic methods to problems in random graphs and set systems. These include questions on matching in graphs and hypergraphs. The research is in the general area of combinatorics. Combinatorics attempts to find efficient methods to study how discrete collections can be organized. It turns out that some kinds of structure are unavoidable, and Ramsey Theory studies these basic properties of all collections. The behavior of discrete collections is extremely important in modeling communication systems and plays a role in modern computing, communications and operations. ***